Hormonal Modulation of Novel Potassium Ion Channels

Nervous systems use electrical signals to transmit information. Critical
for this process are proteins called ion channels that form pores
permitting ions to flow across cell membranes. Modulation of ion channels
alters the electrical activity of an individual neuron and can produce
behavioral changes. The long-range goals of this research are to
determine the function for a novel evolutionarily conserved family of
potassium ion channels, ether a-go-go (eag), to determine if they are
modulated by hormones and which ones, and to understand how these changes
produce behavioral plasticity in vivo. A compelling model system for
these studies is metamorphosis of the tobacco hornworm Manduca sexta
because it permits analysis to be conducted at the level of identified
neurons whose developmental fates and behavioral roles are known. This
system also will permit the use of hormonal manipulations to determine if
the endocrine system modulates the presence or activity of ion channels.
Standard molecular cloning techniques, molecular and immunochemical
cytological methods and quantification assays will be used. Results from
these studies will contribute to our understanding of the roles and
regulation of this family of potassium channels in electrical signaling
critical for the normal development and functioning of the nervous system.